Education for Global Change: Latin American Workshop

9632717 Stoltman In order to extend the International Scientific Union's (ICSU) Education in Global Change Project into Latin America, this workshop has been proposed to bring together scientists from Latin America to identify topics or sections of "Science for understanding tomorrow's world: Global Change;" (student activities and teachers' guide for courses in biology, chemistry, earth sciences, physics and general studies) that may be redesigned into a Latin American context. Using data and research reports from their regions, participants of this workshop, two from each Inter-American Institute for Global Change Research (IAI) member country, and IAI non-member countries (funded from other sources), will develop local context extensions of activities in "Global Change." The workshop will provide participants with necessary background information about "Global Change;" will devote three days to supplement units in Global Change for use by teaches/students of Latin America; and will conclude with a day to finalize the supplements to the Latin American version of "Global Change." This workshop will contribute to ICSU's Education in Global Change Project by providing a final Spanish language version of "Global Change" which will include a series of vignettes that will have been developed during the workshop. %%% This workshop will provide an excellent opportunity for educators in Latin America to convene in order to evaluate their global change educational resources needs and to incorporate these needs into a version of "Global Change," specifically for Latin America. Additionally, this workshop contributes to the IAI scientific goal of increasing capacity building in the Americas. This workshop is being co-cponsored ICSU, Pro-Clim, the Organization for American States (OAS), and the United States National Science Foundation (NSF) on behalf of IAI. The IAI is a U.S. initiative to stimulate cooperative research on global change issues among the scientific institutions of the Americas. The National Science Foundation is the U.S. Government agency designated by the White House to carry out U.S. responsibilities within the IAI. ***